Conference on Firesafety Design Practices in the 21st Century to be held at Worcester Polytechnic Institute, Worcester, MA.

This award is to support a 2 1/2 day conference on fire engineering and design considerations. The issues to be discussed are barriers to institutional, political, and economic with respect to the transfer of recent research results to designers and regulatory bodies. Proceedings will be published.